Electronic Spectroscopy and Dynamics of Cold, Gas-Phase Hg- containing Excimers

The Experimental Physical Chemistry Program supports Dr. Zwier to investigate the structure and dynamics of a general class of weakly bonded mercury complexes. The information obtained will enable the bonding energies of such systems and their reaction paths to be determined. The systems being investigated are bound only by van der Waals forces in the ground state, but are chemically bound in some excited states. The rotationally resolved spectra of such mercury complexes as Hg-water, Hg-ammonia, and Hg-ethylene are being studied by laser-induced fluorescence spectroscopy to determine the binding energies and vibrational frequencies in both the ground and excited states. The dynamics of relaxation and reaction are being probed by fluorescence lifetime studies.